PostDoctoral Research Fellowship

This award is for a postdoctoral fellowship. The investigator will examine to what extent rising climatic temperatures impact antarctic microzooplankton growth and grazing, and to what extent such an impact would modulate top-down control of phytoplankton growth in cold waters. The experimental part of the proposed work would take place in the Ross Sea, a permanently cold ecosystem, and the location of annual large-scale blooms of both diatoms and Phaeocystis antarctica. Changing climate regimes may alter current microzooplankton grazing rates on these blooms either directly through temperature increases or indirectly through algal community shifts. Complementary laboratory experiments on cultures of Antarctic microzooplankton will be conducted to determine the individual and combined effects of temperature and carbon dioxide levels on growth and grazing.